RUI: Assessing Change in Aquatic Resources Using a Historical Data Base: Effects of Land Use on Lakewater Chemistry and Plankton Biodiversity

The focus of this study is to utilize historical information in order to examine and document relationships between land use and the character of lakewater chemistry and phytoplankton biodiversity in a suite of 30 lakes. Three sets of historical information will be assembled for each of the 30 waterbodies. The first set of data will consist of a detailed analysis of the siliceous algal phytoplankton flora for each lake for 1934, 1970, 1990, and for pre-European settlement. The floras will be determined using microfossil remains from lead-210 dated sediment cores. The second set of data will consist of lakewater chemical analyses from the same time periods assembled from actual chemical records and/or inferred from paleolimnological inference models. The third set of data will consist of land use determinations for each surrounding watershed for 1934, 1970 and 1990, derived from high resolution aerial photographs, historical maps and other archived land use records. The three sets of data will be used to correlate changes in the chemical and biological status of each lake with measured alterations in land use for three time periods, the arrival of Europeans to the 1930s, the 1930s to 1970s, and the 1970s to 1990s. %%% One of the primary causes of anthropogenic stress on aquatic ecosystems is the increase in solute content of runoff from catchment basins caused by a change in land use. Despite this fact, the impacts that changing land cover patterns have on receiving waterbodies are poorly understood. The availability of detailed historical records coupled with the ability to extract data from the sediment record offers a rare opportunity to analyze the effects of land use on aquatic ecosystems. A fundamental understanding of how changes from one type of land use to another could alter a nearby waterbody would provide a powerful tool for lake management. The integration of historical records, as outlined in this study, could serve as a model for similar projects in other geographic regions.